PRF: Anaerobic Energy Production in Relation to the Locomotor and Foraging Specialization in Fish

This research investigates the mobilization of glycogen for anaerobic energy production by swimming fish. A wide diversity of freshwater and marine fish species will be examined to determine if glycogen mobilization is an important determinant of the mode of swimming among fish (periodic or burst) and, therefore, their mode of foraging (searching or sit-and-wait). Of specific interest will be steady-state levels of glycogen, rate of mobilization, and rate of glycogen replenishment. Correlations will be sought among physiological parameters, body morphology, and proportion of red muscle possessed by a species. The influence of locomotor and foraging specialization on the relative contribution of anaerobic energy to total energy production will also be explored. Dr. Edward M. Goolish will perform these studies at the University of Michigan during a two- year postdoctoral fellowship tenure.